MRI: Parallel Algorithm Development on an upgraded Beowulf Cluster

EIA-0079710
Fulton, Charles T.
Florida Institute of Technology

MRI: Parallel Algorithm Development on an Upgraded Beowulf Cluster

It is proposed to update an existing 5 processor BEOWULF system to 32-workstations, each having two processors, for a total of 64 processors. The upgrade is motivated by the needs of the radiative heat transfer group at Florida Tech for a more powerful computing capability, and the development of parallel numerical algorithms for various large scale numerical linear algebra problems which have been under investigation by the applied mathematics and computer science groups for more than 10 years. Both research activities require the parallel capability and the large amount of RAM proposed on each node.